Adapting GIS/GPS into the Forest Technology Curriculum Using Learner-Centered Instruction

Creating values and knowledge for the future (Dewey, et al, 1995) requires quantification of landscape flows and processes (Diaz, 1996) which in turn require students trained on current equipment (Congalton and Green, 1992). In meeting the needs of today's students, we have adapted GIS/GPS into our six forest technology courses: 1) Forestry Software Applications 2) Forest Surveying, 3) Advanced Forest Measurements, 4) Forest Management, 5) Silviculture, and 6) Forest Measurements and Surveying Field Practices.
The adaptation of GIS/GPS into the entire forest technology curriculum has provided a tool for students to manage natural resources in a responsible manner.
Learner-based instruction is the focus on each course with extensive field experiences where students integrate their knowledge implementing the use of technology. All new curriculum and course materials are distributed conventionally and are available on the web.